The First IEEE Signal Processing Workshop on Signal Processing Advances in Wireless Communication, Paris, France, April 16-18, 1997

This award provides supplemental funding for the First IEEE Signal Processing Workshop on Signal Processing Advances in Wireless Communication (SPAWC) to be held at La Villette, Paris, France, April 16-18, 1997. This workshop is organized by Professors Lang Tong, Georgios Giannakis and Jean-Francois Cardoso. The objective of this workshop is threefold: (1) to present the most recent research results in the area of signal processing applications in wireless communications; (2) to provide a forum for exchanging ideas on current trends and future research directions; (3) to encourage cross-fertilization of ideas between signal processing and communications communities, and between academia and industry. The scope of the workshop includes the following key areas in wireless communications where advanced signal processing techniques are making significant impact: Array Signal Processing in Wireless Communications; Signal Separation, Channel Estimation and Equalization; Detection and Estimation in Wireless Systems; Modeling of Wireless Channels; Multi-user Wireless Communications: DDMA, TDMA, FDMA; Synchronization and Tracking; Mobile, PCS and Indoor Systems; Underwater and Satellite Communication Systems, and, Performance Analysis and Experimental Results.